Plastic Deformation Near a Crack Tip in a Power-Law Hardening Material Subject to General Loading Conditions

Fracture under elastic-plastic condition is a topic of current interest to the fracture mechanics community as crack propagation in engineering metals involves considerable plastic deformation. The problem of initiation and subsequent growth of the crack is made more complex under combined loading where both the in-plane tensile mode (mode I) and the out-of-plane tearing mode (mode III) occur. The research program analyzes the case of mixed mode loading of cracks in elastic-plastic materials. The method of solution involves a differential equation subject to the mixed boundary conditions. The approach yields free parameters to be evaluated numerically using finite elements.